Working Conference on Earth Science Education

The purpose of the Working Conference is to have leaders in the different fields of the earth sciences and earth science education develop a structure by which a network of experts in the earth sciences and education communities can address unresolved issues in earth science education. The Working Conference is a necessary extension of the l985 Conference and the l986 Task Force meetings. Future improvements in teacher preparation and state certification requirements, in-service instruction, curriculum development, and instructional research in earth science education depend on the resolution of these major issues in earth science education.